Workshop on Genomic Signal Processing and Statistics

The goal of the workshop is to bring together a multidisciplinary group of researchers to identify promising research directions in authentication, information hiding, and related areas. The researchers come from diverse communities including: signal processing, information theory, coding theory, cryptography, and computer science. Each researcher will present a 20-minute talk followed by questions from the audience. There will also be a few short panel-type sessions in which everyone participates.